Information Technology Research (ITR): ITR/ANIR 100 MB/SEC for 100 Million Households

A national glass fiber network to serve 100 million households with two-way
symmetric data communications service at 100 Mb/sec per household will
inevitably be constructed during the next few years. The barriers to the
creation of such a network are not simply questions of deployment issues or
the cost of the network. Rather, fundamental innovations will be required in
the way networks are organized and managed.

The project uses a three pronged approach to investigate the possibilities and
technical consequences of this once-in-a-century event.: (1) a holistic
network architecture designed from first principles, (2) interdisciplinary
fundamental research that addresses the design of an economical, robust,
secure and scalable 100x100 network, and (3) proof-of-concept network
implementations to demonstrate how the network of the future can be built.

The results from the project will take several forms. First, the blueprint
for the 100x100 network will offer a coherent intellectual framework on how
the next generation network could be built. The resulting architecture and
design can serve as a compass to guide investment in network development, and
will be disseminated to government and industry through presentations and
partnerships. Second, in preparing the 100x100 blueprint, fundamental
research advances will be made in security, economics, protocol design, switch
architecture, and network management. These will be disseminated through the
research community. Third, the physical testbeds created through the project
can be used as a platform for further studies, for example, the development of
applications demanding high bandwidth or social science research on the impact
of connectivity in the home. Forth, the software and tools used to design and
validate the 100x100 network, particularly the emulation systems, will be used
to create new curricula for network education for two- and four-year colleges.